Corporate Restructuring and Rising Wage Inequality in U.S. Urban Labor Markets, 1970-2000

This project investigates whether the rise in income inequality over the last three decades can be explained in part by the growth of corporate restructuring. Internal job ladders within firms may have been weakened by changes such as the growth of out-sourcing of employment, privatization of public sector work, the de-regulation of service industries, mergers, and a shift in the balance of power towards shareholders and away from managers. The research will test the importance of these restructuring changes by comparing changes in earnings inequality across 115 cities between 1970 and 2000 using decennial Census data. Changes in corporate restructuring (e.g., increases in subcontracting industries) are expected to be correlated with increases in wage inequality across the four panels.